Lone Mtn Retreat: Anticipating the Role of Emerging Technologies in Science Education -- A Conference by NSTA and the Big Sky Institute of the University of Montana, June, 2004

The proposed project focuses on defining the design constraints and mapping the educational potential of various emerging technologies. The goals are to identify key emerging technologies that have the potential to transform science education; examine critical issues in science education reform that could point to potential uses for emerging technologies; explore how these emerging technologies can be anticipated by educators and harnessed to improve practice in formal and informal science education; outline the characteristics of a research agenda for science education in the context of these emerging technologies; and disseminate insights from the retreat to the science education community.

The two-day conference will include 12 invited discussants and up to 20 experts (observers). Pre-conference activities are guided by a steering committee. Post-conference activities include a published report of the conference findings